Electron Tunneling Pathways in Modified and Native Proteins

The aim of this research program is to understand the mechanism for electron transfer reactions in biological systems. The work is focussed on electron tunneling pathways in proteins, i.e., how the protein environment mediates the electron transfer reaction. The work is divided into three categories: 1) Tunneling Pathways in Proteins - Searches for tunneling pathways in native and modified will be performed. Dr. Onuchic will try to understand how details of the protein structure define a tunneling pathway. New theoretical techniques will be developed to understand inference effects in individual pathways as well as between the pathways. 2) Dynamical Modulation of the Tunneling Maxtrix Element - A tunneling pathway is composed of covalent bonds, through space contacts, and hydrogen bonds. These though space contacts may be flexible, and their motion may modulate the tunneling matrix element. Dr. Onuchic proposed to investigate how this motion introduces a temperature dependence to the tunneling matrix element. 3) Model Improvement and New Theoretical Aspects - New theoretical calculations will be performed to improve the parameters used in the model and to understand the importance of multi-electron effects on tunneling pathways.